Manifolds with Positive Sectional Curvature Almost Everywhere

Abstract for DMS - 0104086

In his major project the investigator plans to continue his
work on Riemannian manifolds with positive sectional curvature
on open dense sets of points. A particular emphasis shall be
put on the question how to distinguish this class from the two
well studied classes of manifolds that have positive respectively
nonnegative curvature everywhere. In further projects the
investigator plans to obtain rigidity
results for metric foliations of Euclidean spheres and for
manifolds all of whose geodesics are closed.

The surfaces of eggs and footballs or the idealized surface of
the earth are examples of 2-dimensional Riemannian manifolds with
positive sectional curvature. For more than a century geometers
understand that surfaces with positive curvature must look simple.
They can not develop any holes, so they look for example
fundamentally different from the surface of a doughnut. In contrast
there are two dimensional manifolds with nonnegative sectional
curvature, which essentially look like the surface of a doughnut.
This elementary observation reveals a fundamental difference
between positive and nonnegative curvature. The main aim is to
understand this fundamental difference and its implications in
higher dimensions as well.